Energy Efficient Operating Systems for Pocket Computers

Energy Efficient Operating Systems for Pocket Computers
Dirk Grunwald, Dept. of Computer Science, Univ. of Colorado, Boulder

Many techniques have been proposed to combat processor and system
power demands. We propose to conduct a systematic investigation of
power conservation mechanisms and policies. The research will
construct an open-source, power-efficient operating system suitable
for next-generation, powerful palm-top computers. Moreover, we will
examine the possible energy reduction from application level energy
management using a a variety of runtime environments that collaborates
with the operating system to limit or control application-level
resource usage, including threads memory management. The research will
use existing high performance processors designed for mobile computing
as well as simulator processor power models to assess how power
demands can be reduced with minimal user intervention. This research
is significant because it addresses one of the paramount issues
hampering the widespread use of ubiquitous computing, the high power
demand of such computers.